The Mechanisms of Ductile Fracture and Fatigue

This award provides group travel support to attend a symposium to discuss the achievements in the area of the "Mechanisms of Ductile Fracture and Fatigue", and to offer future directions for new research. The award also covers the costs associated with the publication of a monograph which will result from the presentations of the symposium.